Bureau of Engraving and Printing Grant:Determination of the Role of Melamine - Formaldehyde in Currency Paper

The role of melamine-formaldehyde as a bonding agent of paper fibers will be studied in detail. The results will be used to formulate property requirements for alternate bonding agents. The location of the binder within the fibers and within the composite will be determined and correlated with the nature of the chemical bonds between fiber and binder and with the mechanical properties of the paper.